Neural Networks for Time Series Prediction

This award is for a postdoctoral associate in Experimental Science. The associate, Asriel Levin, will be working on Neural Networks for time series analysis.